Dynamic Light Scattering Study of Commensurate and Incommensurate Structure in Ferrielectric and Twist Grain Boundary Liquid Crystals

9904321
Sprunt

This project is a study of liquid crystalline phases which trace in a virtually step-wise fashion the development out of the liquid phase of the orientational and positional order characteristic of solids. Striking new elements within this theme emerged with the discoveries of ferroelectricity and twist grain boundary phases in liquid crystals. The technique of dynamic light scattering will be used to address these important topics in chiral liquid crystals exhibiting a variety of recently discovered ferro-, antiferro-, and ferrielectric phases, as well as in materials possessing twisted grain boundary structure. As a future direction, the order parameter dynamics of recently discovered achiral ferroelectric liquid crystals will be investigated.

Well integrated research and education projects on ferro- and antiferroelectric liquid crystals have high technological significance in that fundamental studies on these materials are widely acknowledged to be providing an important basis for the next-generation electro-optical devices. Students trained on these types of fundamental science projects will likely face enhanced job opportunities in these and related areas viewed as high-risk but high-potential for economic impact.